Enhancing Undergraduate Learning in Natural Science: A New Curriculum for Laboratory Classes in Biological Anthropology

This project redesigns the laboratory curriculum of physical anthropology courses. The courses involve a two-semester sequence and core curriculum, which actively engage students in the learning process using problem-oriented class exercises. These exercises are also used to integrate the laboratory with the lectures, as well as help standardize materials presented in different sections of the courses. The program is primarily offered to freshman and sophomore non-science majors, and teams of experienced undergraduates and graduates are used to help enhance students' learning skills.